RUI: The Primary Structure of Organic Matrix from CaCO3 Biomineral and some Mechanisms of Matrix/Crystal Interactions

The acid matrix proteins from CaCO3 biominerals paradoxically may inhibit crystallization on one hand, but may promote it on the other. Apparently the soluble matrix proteins in solution can bind to crystals or crystal nuclei to prevent their growth while the same proteins, immobilized on a substrate, can induce nucleation or direct crystal growth. The proposed studies are directed at evaluating several hypotheses for the purpose of calcifying some mechanisms of matrix/crystal interactions. The hypotheses are: 1) the primary structures of matrix proteins play a major role in determining their activity; 2) crystals have different classes of binding sites for matrix molecules and peptides, many corresponding to crystal growth sites, but others not related to crystal growth at all; 3) the polyanionic regions of matrix molecules and peptide analogs of matrix bind to and block development of crystal growth sites, and the hydrophobic regions extend from the crystal surface, disrupting movement of lattice ions there; 4) immobilized-matrix nucleators of crystallization function best at a particular molecular size and composition of polyanionic region - the presence of a hydrophobic domain may suppress nucleation activity; and 5) the functional property of matrix molecules as regulators of crystallization is their binding to crystal surfaces: soluble calcium binding per se by matrix is not necessarily relevant to mechanisms of matrix- crystal interaction. These hypotheses will be evaluated via several approaches, including automated Edman degradations and fast-atom bombardment mass spectrometry for sequence analysis, automated solid -phase peptide synthesis, atomic force microscopy for imaging crystal surfaces, as well as a variety of crystallization assays. Evaluation of the hypotheses is required for clarification of the mechanisms of matrix/crystal interactions and will lead to a better understanding of biomineralization in general.